Collaborative Research: CDS&E New Matrix-free Computation for Large Scale Spatial Analysis

This research project will develop faster and more reliable computational methods for analyzing large-scale spatial datasets arising from spatial linear mixed models and Gaussian random fields. As modern technologies enable the collection of increasingly high-resolution spatial and environmental data, existing statistical approaches often become computationally prohibitive due to their high memory and computational requirements. This project will address these challenges by developing scalable computational tools for spatial prediction, inference, uncertainty quantification, and model evaluation without requiring the formation of large dense matrices. The proposed methods will support applications in agricultural science, including high-dimensional genotype-by-environment experiments for understanding phenotypic stability and plasticity in maize. These advances are expected to strengthen the scientific foundations needed for food and agricultural productivity, data-driven decision-making, and broader applications of spatial data analysis. The project will contribute to education and workforce development through mentoring and training activities in statistics, data science, computational methods, and interdisciplinary research, and through dissemination of research outcomes, including publications, software tools, and educational resources for the broader scientific community.

This research develops scalable, matrix-free computational methods for large-scale spatial analysis using spatial linear mixed models and Gaussian random fields on fine regular grids. Core tasks such as kriging or best linear unbiased prediction, restricted maximum likelihood estimation, likelihood evaluation, conditional simulation, and spatial inference become computationally challenging as spatial resolution increases, with standard approaches requiring computational effort cubic in sample size and memory resources quadratic in sample size. To address these limitations, the project combines Krylov subspace methods, spectral transformations, sparse rectangular factorizations, incomplete Cholesky factorization, and preconditioned conjugate-gradient algorithms to enable prediction, inference, REML estimation, and conditional simulation without explicitly forming large dense matrices. The project will develop scalable methodologies for key challenges in spatial analysis, including mapping exceedance regions, downscaling with stationary covariance structures through torus-lattice embeddings, and spatial adjustment methods for complex spatial designs. The proposed methods will be illustrated through applications to high-dimensional agricultural experiments, including genotype-by-environment studies for understanding phenotypic stability and plasticity in maize. The project will advance computational tools and statistical methodologies for large-scale spatial analysis and disseminate results through publications, mentoring, software tools, and educational activities.